The Role of Cutinase in the Determination of Tissue Specificity of Fungal Plant Pathogens

Plants have evolved an effective arsenal of defense systems and are resistant to the vast majority of attempted infections by fungal pathogens. In sharp contrast to cultivar and non-host resistance, the acknowledged fact that specific plant tissues (e.g., stems and leaves) are either susceptible or resistant to a particular pathogen has not been under investigation as a source for durable disease resistance. We have provided first evidence that fungal cutinases are involved in the determination of fungal tissue specificities. Conclusive evidence exists that they are generally involved in the penetration of the pathogens through the protective and polymeric cuticle layer. Although this function of cutinases appears identical for most of the pathogens investigated, the enzymatic properties are surprisingly diverse. Evidence exists that one of these parameters, the pH-dependency of cutin hydrolysis, is related to the tissue specificity of the respective pathogens. This hypothesis will be tested with Alternaria brassicicola, an non-specific pathogen that produces both prototypes of cutinase. The enzymes will be purified and characterized. Antibodies will be used to clone both cutinase cDNAs and, ultimately, both genes. The ultimate goal is the disruption of each of the cutinase genes independently, and to study the impact of these changes on the pathogenicity on different host tissues. The ability of a pathogen to infect plant tissues depends on factors in both the host and the pathogen. The pathogen must be able to invade the plant tissue and avoid a variety of host chemical defenses. To be resistant to infection, the host must effectively recognize the pathogen and respond appropriately. Some pathogens need a portal of entry, such as a wound, to infect plant tissues; whereas other more virulent pathogens have the ability to digest the outer protective layers of the plant and, hence, only need to come in contact with the plant to initiate infection. The outer layer of the plant is composed of an insoluble polymer called cutin, and invading pathogens must first degrade this layer with enzymes known as cutinases. The work supporting this proposal has shown that tissue specificity of plant pathogens may depend in part on the different specificities of the cutinase enzymes. This also implies that host resistance may depend in part on the heterogeneity of the cutinase polymer produced by the plant. This work should provide a better understanding of this heterogeneity that will add to our knowledge of pathogenic specificity that can be used in the design of new forms of plant defense through changes in cutin structure.//